A New Method for Measuring Time-Dependent Deformation: Persistent-Scatterer INSAR

Interferometric SAR (InSAR) measurements have proven
invaluable for study of active volcanism, earthquakes,
landslides, and other geophysical phenomena. Yet temporal
and spatial decorrelation limit its applicability to
mostly dry, sparsely vegetated areas, while these hazards
are distributed globally. The permanent scatterers
technique, which focuses on resolution elements whose echo
is dominated by a single bright scatterer, is a new method
that can eliminate these sources of noise. This method
has proven successful when applied to urban areas where
man-made structures are dominant scatterers, but has been
less successful over natural terrains, including most
volcanoes, faults, and landslides. We have developed a new
analysis approach that identifies many more stable pixels
in natural terrains than are found using published
persistent scatterer methods. We propose to further
develop the persistent scatter method as a means to fully
exploit the existing archive of spaceborne radar data. We
will apply the method to areas where new data can best
contribute to our understanding of geophysical processes,
including one volcanic area (Mt. St. Helens), one tectonic
area (Denali Fault), and one landslide area (Castagnola,
Italy).

Natural hazards remain dangerous and expensive challenges
to society; their study is limited in most of the world by
the scarcity of geophysical data. Improved persistent
scattering analysis methods will result in more
comprehensive remote sensing coverage from existing radar
systems, and lead to a more complete understanding of
earthquakes, volcanoes, and landslides. The proposal will
support the work of a senior Ph.D. student, contributing
to the training of a new generation of Earth scientists.
Our software will be made available to all interested
researchers.